Mathematical Sciences Research Computing Equipment

The Department of Mathematics at Oklahoma State University will purchase
and maintain a computational server dedicated to the support of research
in the mathematical sciences. The equipment will be used to carry out
symbolic algebra computations by our research faculty; including, in
particular,

1. "Intersection theory computations on moduli spaces of curves",
(C. Faber). Computations aimed at verifying a detailed conjectural
description of the tautological ring of the moduli space of smooth
curves of genus greater than or equal to 2; and an extension of the
algorithm for intersecting divisors on the compactification this
moduli space to an algorithm that will compute intersection numbers of
arbitrary classes in the tautological rings of the compactified moduli
space.

"SCHUBERT: a MAPLE package for intersection theory in algebraic
geometry", (S. Katz). Continuation of the development with Stromme of a
symbolic algebra package for research in intersection theory in algebraic
geometry.

3. "SHEAFHOM, and Hecke operators on the cuspidal cohomology of arithmetic
groups", (M. McConnell). Further development of the programs SHEAFHOM that
allow one to work with sheaves, spectral sequences, and intersection
homology; and calculations aimed at identifying the cuspidal cohomology of
certain congruence subgroups of GL(4,Z) and computing the Hecke
operators on it.

4. "Computing Projects in Numerical Analysis and Approximation Theory",
(H.G.W. Burchard). Data fitting by means of primal-dual interior
points methods.